CRA Conference on Grand Research Challenges in Revitalizing Computer Architecture Research

CRA Conference on Grand Research Challenges in Revitalizing Computer Architecture Research

Abstract

The proposal is to hold a conference in the thematic area of Computer Architecture as part of the series on grand research challenges in computer science and engineering. The conference aims to define a collective vision of a dynamic research agenda to revitalize research in computer architecture. The conference will provoke unconventional thinking among experts to identify deep challenges that have the potential to result in revolutionary ideas in the field. It also aims to develop better integration of early-career researchers in to the research community.